CRI: IAD Acquisition of a Cluster and High Performance Storage for data-intensive applications in Materials Science, Power Systems and Systems Biology

This project supports the acquisition of a high performance cluster and storage system for data-intensive applications in materials science, electrical power systems and systems biology. In materials science, the investigators will develop methods to analyze data from the LEAP atom probe tomography, and find ways to understand material properties from the arrangement of its constitute atoms. This new instrumentation is increasingly being adopted by materials scientists, and the project will provide an archive for such data and develop analysis tools. In power systems, the researchers will investigate improving the security, reliability and efficiency of national energy infrastructure by utilizing high-performance computing for complex system analysis in energy control centers. In systems biology, the investigators will collectively analyze large-scale gene expression data from experiments conducted worldwide to build robust gene networks. These research efforts will lead to significant advances in the penetration of high performance computing technology in materials science, power systems research, and molecular biology. The project will bring together multiple departments and research centers at Iowa State University and further enrich interdisciplinary culture and training opportunities.
A number of students will be trained in computation-centric interdisciplinary research.